Internet II Connection for Research in Numerical Relativity and Relativistic Astrophysics at Bowling Green State University

The proposal plans to connect Bowling Green to OARNet and then to the Abilene Network to enable parallel rendering research in the areas of numerical relativity and relativistic astrophysics. The PI also proposes the development of an "Internet2 Task Force" on campus to help promote the use of the high-speed network resources by other researchers.